Fueling the Workforce with Science Teacher Scholarships

Twenty-six individuals with bachelors degrees in STEM disciplines are receiving two-year scholarships of $10,000 annually to study for a Masters of Arts in Teaching (MAT) degree in biology, chemistry, earth science, mathematics or physics. The scholarships are helping to meet an area of national and State need for quality science and mathematics high school teachers with strong content backgrounds. A doubling of the number of high school teachers graduating with an MAT in science and mathematics is expected by 2011. The annual increase in the number of underrepresented minorities groups receiving an MAT in STEM fields is expected to exceed twenty-five percent by 2011.